U.S.-Argentina Cooperative Science Program: Research in Mathematical Analysis

This award from the U.S.-Argentina Cooperative Science Program supports research collaboration between U.S. investigators Carlos Kenig of the University of Chicago and Luis Caffarelli of the Institute for Advanced Study at Princeton, with Nestor Aguilera of the Universidad Nacional del Litoral in Santa Fe, Argentina; Julio Bouillet of the Universidad de Buenos Aires; Eleonor Harboure de Aguilera of the Universidad Nacional del Litoral; Jose Lami Dozo of the Universidad de Buenos Aires; and Carlos Segovia Fernandez of CONICET. The project will focus on mathematical analysis, particularly modern theory of partial differential equations and singular integral operators. Through this award, the U.S. side will have an opportunity to collaborate with young Argentine mathematicians on topics of mutual interest in mathematical analysis.